Practical Applications of Advanced Technologies: Disabled Citizens Computer Center

Working in a Disabled Citizens Computer Center, which will be part of the National Education Special Alliance established by Apple Computer, a team will develop and test modified educational software for use by visually-handicapped individuals. Under the direction of experienced staff loaned by the American Printing House for the Blind (APH), existing educational software from the Minnesota Educational Computing Center will be modified to give speech/auditory output. Much of the work of conversion will be done by students in computer classes from the Louisville Central High School Computer Technology Career Magnet Program; the educational opportunity provided for these students is an important element of the program. Teachers will be trained to use the materials and will test its utility in practice. Dissemination of finished materials and recommended methods of use will be through the Apple sponsored network and APH. Cost sharing by the partners will total 31% of the NSF funding.